CAREER: Energetics of Mantle Convection and Physics of Earth's Evolution

This project proposes to improve our understanding of the energetics
of convection in Earth's mantle and its relation to the evolution of
the Earth system, including the atmosphere, the ocean, and the core.
The central theme is the global balance between potential energy
release (energy source) and viscous dissipation (energy sink), and in
particular, energy dissipation associated with the intense
deformation of stiff lithosphere at subduction zones --- probably the
most peculiar aspect of plate-tectonic convection. The following two
questions form the backbone of the proposed research. How does the
mantle actually flow by solid-state creep? Mantle rheology is not
only controlled by temperature, pressure, and stress, but also
affected by volatile contents, phase transformations, and grain size
evolution. And how can we test various theoretical predictions by
observations? The PI will study a series of key geodynamical problems
through numerical modeling, theoretical analysis, and a compilation
of relevant geological observations. The entire research plan is
composed of the following seven sub-themes: (1) the ambient state of
stress in oceanic lithosphere, (2) the energetics of slab rollback,
(3) the onset of convection with internal heating, (4) scaling laws
for stagnant-lid convection with mantle melting, (5) the initiation
of plate tectonics, (6) the history of ocean volume and global water
cycle, and (7) the nature of core-mantle interaction. Collectively,
they constitute a major step toward a better understanding of the
long-term behavior of Earth, by tackling unresolved first-order
issues all together. Moreover, each of them is designed to address a
stand-alone, basic physics problem with potential applications beyond
the scope of this proposal, reaching out to earthquake seismology,
regional tectonics, planetary sciences, Precambrian geology, igneous
petrology, plume dynamics, and geomagnetism. This proposal includes
the education of one female Ph.D. student in theoretical geodynamics.
The PI will also assimilate research results into three existing
undergraduate/graduate courses he regularly teaches at Yale. In
addition, a new 200-level undergraduate course will be developed on
the physics of Earth's evolution, with hands-on experience in
scientific computing. The PI will also conduct community outreach
through the Yale-New Haven Teachers Institute, to assist K-12
teachers in developing public school curricula, by showing how
geophysical topics can be used as friendly examples in science
classes.